Mathematical Analysis of Interfacial Dynamics

Chen
DMS-1008905

The objective of this project is to provide a systematic
study of multi-phase transitions. There are macroscopic free
boundary models, which are based on observable quantities and are
needed to deal with singularities due to topological changes of
free boundaries, and microscopic continuum models, derived at the
molecular level and (always) well-posed. One goal of the project
is to derive critical information from continuum models for free
boundary models when the latter become indeterminate. Another is
to develop new microscopic continuum models for phase transitions
among phases such as solid/liquid and different grains in a
polycrystalline material. The main tools used here are theories
of partial differential equations, singular perturbations,
asymptotic expansions, complex analysis, bifurcation, center
manifolds, global analysis, dynamical systems, and geometric
measure. From time to time, computer assistance is used to first
stimulate, then validate, and further extend theoretical
conclusions.

The investigator studies interfacial phenomena, which are
commonplace in nature and occur whenever there is a continuum
that can exist in at least two different phases and there is some
mechanism that generates a spatial separation of these phases.
The spatial boundaries that separate these phases, referred to as
interfaces or free boundaries, evolve with time due to some
enforcement of transitions of phases from one to another. A
typical two-phase transition is a solidification process of a
liquid. A classical multi-phase transition arises from
evolutions of grains in a polycrystal where alignments of atoms
in different grains do not match at grain boundaries. The growth
of a solid polycrystal from a liquid involves a two-phase
transition between liquid and solid and a multi-phase transition
among grains. These phenomena motivate new theoretical
development in free boundary problems, systems of parabolic or
elliptic partial or ordinary differential equations, and
dynamical systems. Insights gained from the project increase
connections between mathematicians and materials scientists. New
models developed here provide scientists with tools for
understanding and designing new materials.